Dissertation Improvement Grant Gasir Hinterlands Project

This Dissertation Improvement Grant, investigator Ramona Harrison/PI Thomas McGovern, proposes to examine local production and imported trade items during the medieval period in Iceland through zooarchaeological investigations that will connect data to a larger environmental archaeology project, the Gasir Hinterlands Project. The larger Gasir project is a highly integrated, interdisciplinary environmental archaeology project to gain insights into social, cultural, material and environmental change in medieval Iceland. Ramona Harrison will be responsible for the excavation and analysis of archaeofauna from four medieval Icelandic sites in order to gain insight into the resilience stategies of local social groups and their adaptations to climate perturbations.